X-Ray Lithography Process Studies

9317745 Cerrina The P.I. propose a research program to extend the application of X-ray lithography to sub-).25 um devices. The previous phases of this research program have led to key developments in the area of X-ray lithography. The P.I. will continue the refinement and development of software, processes and experimental tools, to explore the extendibility of the applications of X-ray lithography to the new domains of sub 0.1 um critical dimensions. The proposed research program is twofold, addressing both the need of developing 0.25 (256 Mbit DRAMs) and 0.17 (1 Gbit) um key lithographic processes, as well as studying the longer term goal of the application of X-ray lithography to sub-0.1 um dimensions. The proposed program includes (1) the extension of the modeling codes, (2) X-ray mask optimization and phase shifting masks, (3) High-precision alignment systems, (4) Diffractive X-ray optical elements and (5) X-ray masks replication. The research program will be carried out at the Center for X-ray Lithography, where a full set of X-ray lithography processing tools are available. Technology transfer is already in place thanks to the collaborations with the SEMATECH Center of Excellence and with Motorola Inc. ***